Machine Learning, On-line Algorithms, and Optimization

This research involves developing new connections between the areas of
machine learning, on-line algorithms, and optimization, and using
these connections to address fundamental problems in all
three areas.

In machine learning, one focus of this research is how to best combine
a small sample of labeled data with a large amount of unlabeled data
in order to produce high quality predictions. This type of problem
has become especially important given the explosion of data now
available over the web. This research is exploring how techniques
such as network flow and graph cuts from the optimization literature
can be used to provide a new means of attack, and how to best make a
number of design choices that arise in this approach. Another basic
question this work investigates is what kinds of concepts can be
automatically learned in the presence of highly noisy data, and to
what extent substantially new types of algorithms may be possible.
The PI recently gave the first algorithm to learn a class of concepts
in the presence of noise that is provably not learnable by a wide
class of techniques known as Statistical Query methods. The current
research aims to expand on this work and explore the extent to which
it can be pushed much further. The types of learning problems being
studied have close connections to problems of decoding random linear
codes and finding approximate shortest lattice vectors that arise in
cryptography. Improvements to the learning algorithms should impact
our understanding of those problems as well.

Another major thrust of this research is the use of techniques from
machine learning to address problems in online algorithms. In
particular, the highly-developed "weighted experts" technology in
machine learning suggests new approaches for combining multiple online
algorithms that may simplify a number of longstanding open problems.
This work is studying the extent to which this connection can provide
insight into several basic questions, such as dynamic optimality in
search trees and the weighted caching problem. Finally, this research
is also studying a number of basic approximability questions, as well
as exploring new frameworks for the analysis of local search
techniques.